CIF: Small: Robust decentralized constrained optimization with structurally guaranteed feasibility

This project addresses a fundamental challenge in trustworthy decentralized systems: how to guarantee strict compliance with globally coupled operational constraints while maintaining robustness, privacy, and adaptability in dynamic and potentially adversarial environments. Constrained optimization is central to modern infrastructures such as smart grids, wireless networks, autonomous transportation, data centers, and edge AI systems, where decentralized decision making enables scalability and resilience without centralized control. However, existing decentralized optimization methods often tolerate soft or probabilistic constraint violations, which can propagate across interconnected systems and trigger failures in safety- and mission-critical applications. These vulnerabilities are further exacerbated by privacy risks, device faults, adversarial updates, and evolving system objectives in dynamic environments. This project develops new principles and algorithms for trustworthy decentralized constrained optimization that structurally guarantee feasibility throughout the optimization process, even under adversarial and uncertain conditions. The research advances the theoretical foundations of robust decentralized optimization while enabling safer and more reliable intelligent infrastructure systems. Broader impacts include integrating research outcomes into project-based education, training students in optimization and resilient AI systems, and disseminating research to strengthen workforce development in smart energy, resilient networking, and autonomous systems.

The project develops a new primal-domain projection framework for robust and feasible decentralized constrained optimization. Unlike centralized systems, decentralized networks lack global coordination to detect and correct constraint violations after they occur, making strict feasibility a fundamental challenge. Existing robust optimization methods primarily improve convergence and resilience by perturbing dual variables or Lagrange multipliers, but such approaches generally cannot guarantee exact feasibility throughout the optimization process, limiting their reliability in mission-critical applications. Departing from conventional dual-based formulations, the proposed framework embeds feasibility directly into the optimization dynamics through projection-based primal updates that enforce coupling constraints at every iteration. A key innovation is the geometric formulation of the feasible set as a Riemannian manifold, enabling decentralized optimization to be interpreted as constrained motion along the manifold and providing a rigorous foundation for intrinsic constraint satisfaction. Building on this framework, the project investigates privacy-preserving robust updates, fault-resilient aggregation rules compatible with projection structures, and online algorithms with temporally structured privacy noise and time-aware aggregation strategies to achieve feasibility and sublinear regret under dynamic and adversarial conditions. Theoretical analysis and validation with smart-grid systems as an application brings theory into practice and demonstrates the viability of the proposed framework. The research advances the fundamental understanding of the interplay among feasibility, robustness, privacy, and adaptability, delivering principled solutions for interconnected decentralized systems.